Data Acquisition, Analysis and Laboratory Exercises Using Personal Computers

Personal computers are being use in physics and astronomy courses to obtain data in real time, perform analysis, and construct models. In the physics laboratories the data are used to illustrate and make extensive analysis of various phenomena. In the elementary laboratories the focus is on analysis to enhance the skills of students and to provide hands on experience with computers and modern data acquisition. In the advanced laboratories computers are being used, in addition to the above, to provide more sophisticated analytical tools. In the astronomy laboratories available software is being used to help students visualize celestial motion, perform exercises using celestial coordinates, and provide background for observation sessions.NSF grant funds are being matched with funds from non-federal sources.